Computer Science, Engineering and Mathematics Scholarship Program

Proposal #: 0220630
PI: R. Farley
Institution: VCU
Title: Computer Science, Engineering and Mathematics Scholarship Program

The goal of the program is to extend the NSF CSEM scholarship opportunities to beginning Virginia Commonwealth University (VCU) students while extending the opportunities to J. Sargeant Reynolds Community College (JSRCC) students. These new scholarships enable undergraduate students in CSEM majors to complete their degree programs within the normal time frame and subsequently enter the work force in CSEM occupations. The program provides 29 scholarships of $3,125 per year per student over four years to students majoring in computer science, engineering, and mathematics.

The comprehensive support structure, which has undergone minor refinements over the two-year span of the current program, is extended to the new scholars. The opportunity to offer CSEMS awards to beginning VCU students presents an exciting possibility to the VCU Director of Admissions who is committed to using these awards to help recruit more students into CSEM disciplines.